ITR/SY+AP: Acquisition, Representation, and Remote Visualization of Digital Artifacts

The goal of this project is to research and develop high-quality, scalable, and reconfigurable acquisition
and display systems for digital library collections accessed via the Internet. We will acquire new digital
collections at the Museo de Arte de Puerto Rico and provide access to them through end-user displays
that are scalable and reconfigurable. These displays will cooperate with a remote model server to
provide the highest possible display fidelity under the current network conditions. In order to allow
the widespread acquisition and dissemination of digital collections, revolutionary advances in 3D model
acquistion, content delivery, and display are required. To thisend,we will focus on the following research
challenges:
Acquisition: we willprovide new acquisition strategies designed to produce high-quality layered,
image-based representations, 3-D shape descriptions, and multi-layerd data. These new strategies
will enable efficient access and high-resolution end-user display. hybrid representation of texture,
shape, and metadata.
Representation: we will encode the acquired collection in a way that moves toward the features
provided in the MPEG-4 multimedia standard. This encoding will preserve the richness and
fidelity of the data while achieving standardization for access, manipulation, and evolution of
collections over time.
Remote Access: we will develop new techniques supporting distributed access to digital col-
lections in a heterogeneous networked environment. These techniques will be designed to satisfy
access requirements across a spectrum that varies from very high quality local display and low-
latency interactive manipulation, to remote access over wide-area, potentially low bitrate links.
Display: we will develop new techniques for deploying scalable tiled projection displays for
institutions and users who do not have access to sophisticated and dedicated technical support and
high-cost hardware. These scalable display systems can be assembled from commodity hardware
and provide automatic, continuous calibration, and rapid reconfigurability.
The motivation for this work stems from the need for high-quality preservation, access, and display
techniques for digitized collections. Libraries, museums, and research scholars who want to acquire,
manipulate, and provide remote access to (and high-definition display of)digitized artifacts need cost
effective, non-intrusive, easily configurable methods for creating and viewing high-quality collections.
New techniques will be evaluated on real-world library collections with particular focus on the preser-
vation and dissemination of artifacts at our partner institution for this work, the Museo de Arte de
Puerto Rico . With the aid of expert consultants who will contribute significant effort towards this
project at our partner institution (see attached letter), we willdevelop and deploy a prototype system
for acqusition and display using the techniques developed as part of this project. The resulting digital
archive will be made accessible to patrons of the museum as well as a much larger audience around the
world via the Internet.
We believe that this research will have significant immediate, medium-term and long-term impact.
The immediate impact of the project will be the development of new acquisition, access, and display
methods that will be deployed and tested at the Museo de Arte de Puerto Rico, making parts of their
collections available in forms not previously possible. In the medium term, our new technical approaches
will be valuable not only to the digital library community, but also to other research, instructional, and
commercial areas where configurable large-scale display systems are needed (e.g., classroom, research
visualization centers, conference venues, etc). In the long term, we believe this proposed work has
the potential to substantially impact the way people view and interact with data, whether the data is
a collection of historical artifacts, a visual representation of a complex simulation, data/illustrations
presenting in the classroom, etc. Moreover, the cost effectiveness of our approach means that it will be
affordable to a wide range of users.